The University of Connecticut Young Scholars Program

The University of Connecticut will initiate a six-week, residential, multidisciplinary Young Scholars project which will offer science enrichment activities to 36 precollege students entering grades 11 and 12. This summer program will emphasize highly interdisciplinary research participation in chemistry, physics, computer science, engineering and the life sciences. Projects will involve imaging and computer-aided design, fabrication of microelectronic devices, environmental problems, laser spectroscopy, and cellular and molecular mechanisms of neural circuits. Research experience will be gained through work in the laboratories of practicing researchers/mentors.